STEM STARs: A Partnership to Build Persistence to Math-Intensive Degrees in Low-Income Students

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at University of South Alabama, Bishop State Community College, and Coastal Alabama Community College. A total of 60 scholars pursuing Associate in Science degrees and B.S. degrees in Engineering, Chemistry, Mathematics and Statistics, and Physics will receive scholarships up to $15,000 for up to five years. Scholars will receive faculty mentoring and the project will build strong scholar cohorts through social and service activities. Additional activities for scholars include participation in learning communities to support pre-calculus coursework.

The overall goal of this Track 3 Scholarships in STEM project is to increase STEM degree completion of academically talented, low-income undergraduates with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the workforce in engineering, mathematics, physical sciences, and other key areas of need. The project will be assessed by an experienced evaluator and the data generated will contribute to the knowledge base by exploring the effects of targeted mathematics supports on the retention of talented, low-income students in STEM. This project is funded by NSF's Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.